Mathematical Sciences: Several Complex Variables Hyperbolic Geometry and Diophantine Geometry

The research entails investigations into aspects of value distribution theory in several complex variables and complex geometry with special attention to classes of complex curves in complex projective planes. The methods and techniques are likely to have ramifications to other branches of mathematics, in particular, algebraic and arithmetic geometry and number theory.